Special Meetings: SIAM Interdisciplinary Conferences in the Mathematical and Computational Sciences

Under this grant (NSF-DMS-0963706), the Society for Industrial and Applied Mathematics (SIAM) will organize and run a series of interdisciplinary conferences in the mathematical and computational sciences, during the three years April 2010 through March 2013. The grant includes funding for interdisciplinary workshops that build on programs initiated by the NSF Mathematical Sciences Institutes and the SIAM Workshops Celebrating Diversity. The funding will support travel of students, early career professionals and invited speakers to SIAM conferences and dissemination of invited conference presentations and tutorials to the wider community.

SIAM interdisciplinary conferences are distinguished from other conferences in the mathematical and computational sciences by the extent to which they routinely attract researchers and practitioners from within the mathematical and computational sciences and simultaneously from within other sciences, industrial organizations and government laboratories. As a result they contribute to advances in the sciences, in government programs, and to the economic competitiveness of the United States. The conferences in the series address a broad range of topics and applications, giving them intellectual vibrancy, timeliness, and reach, and they utilize an open format to identify and incubate emerging areas through community proposed sessions. The conferences provide a welcoming environment for students and early career professionals, integrating education with research. Oversight of the conferences by SIAM officers promotes diversity by forceful and supportive encouragement of diversity among organizing committees and invited speakers. In addition, a special focus on diversity is provided by the SIAM Workshops Celebrating Diversity.